New Hampshire Biotechnology Technician Education and Training

This grant will provide superior instrumentation to educate technicians for emerging high technology biology-based careers in the manufacturing and production phase of the biotechnology industry. The Biotechnology Associate in Science degree, certificate and industry specific training programs offered by the NH Technical Colleges/Institute are the only programs in the state that will train technicians for entry level employment into the biotechnology industry and for further education at four year colleges in New Hampshire and other states. The contextual learning that takes place in the cornerstone courses, Biotechnology Experience I and II, will produce technicians that know how to function in the biotechnology industry. The interactive multimedia teaching and independent student learning laboratory will facilitate the teaching and learning of conceptually difficult aspects of the practice of biotechnology. The resource center created by the very existence of the biotechnology facility located at NH Technical College at Pease will connect students, educators, government and bioindustry representatives interested in the development of New Hampshire's and New England's biotechnology industry and will help to nurture a seamless infrastructure which will provide multiple entrances into and exits from education and jobs in biotechnology.